Prototyping Inexpensive, Large Scale Oceanographic Sensor Arrays.

The PIs have requested a Small Grant for Exploratory Research (SGER) to fabricate and deploy new modified BOA technology in order to rapidly prototype and test new transducer types (i.e. irradiance, conductivity, differential pressure, strain, oxygen).